Acquisition of Computer Equipment for Crustal Deformation Research

0075680
Freymueller

This grant provides support for the costs of upgrading the computing facilities for crustal deformation research at the Geophysical Institute of the University of Alaska, Fairbanks. Along with cost-sharing provided by the Geophysical Institute, this grant will provide funds to acquire a new server computer and several workstations, as well as laptop computers for downloading field data. The new computers will replace aging workstations and unreliable laptops. The new computers will be used to support an active ongoing NSF-supported research program on deformation of the crust in Alaska and Asia, using Global Positioning System (GPS) and Interferometric Synthetic Aperture Radar (InSAR) techniques. The newly-acquired computers will provide a solid computational foundation for GPS and InSAR data analysis, and inversion and modeling of the resulting data. In addition to the PI, Jeff Freymueller, the equipment will be used by five graduate students (three female), one postdoc, and a new faculty member (hiring is in progress).
***